CAREER: Elucidating Effects of Grain Boundary Segregation Spectra on Spatial Variation of Grain Boundary Structural Transitions and Precipitation in Aluminum Alloys

NON-TECHNICAL SUMMARY

At a microscopic level, metals are composed of many small items called grains. Grain boundary segregation is the preferential accumulation of certain elements to the interfaces between grains. This process can strongly influence how the metal behaves under stress, temperature or other stimuli. In aluminum alloys, grain boundary segregation can have a significant impact on things like strength, embrittlement and stress corrosion cracking. Since aluminum alloys are widely used as structural materials across a variety of applications, understanding and controlling grain boundary segregation is critical for ensuring their strength for a predictably long period of time. While grain boundary segregation has been extensively studied in aluminum alloys, most prior studies have assumed a uniform segregation behavior and a single elemental composition across grain boundaries. Unfortunately, this is far from reality. This simplified assumption further prevents controlling and designing grain boundary-related microstructural features to achieve certain behaviors, or properties, in metals. To address this missed opportunity, this research project is elucidating the effect of varying grain boundary segregation and precipitation at local regions across a collection of aluminum alloys to better assist future alloy development efforts. The results are contributing to constructing an open-access interface database for the research community to use. This research is also serving as the foundation for the project’s educational program, which is introducing students to the role of interfaces in materials processing, composition, microstructure, and properties. Educational activities are also emphasizing the importance of alloy development while equipping students with the knowledge and mindset needed to address current challenges in metallurgical engineering. In addition, the project is educating high school students on metallurgical engineering basics through outreach activities and interactive demonstrations at museums and local schools.

TECHNICAL SUMMARY

Recent computational studies have revealed that grain boundary segregation exhibits a spectral behavior, with solute concentrations varying with local regions along a single grain boundary and across multiple grain boundaries. This presents exciting opportunities for more precise microstructural design and control, enabling the development of aluminum alloys with enhanced performance. However, alloy systems investigated for the spectral behavior so far are mainly binary systems, while commercial aluminum alloys usually contain more than two major solute elements. Moreover, the effect of the spectral behavior among grain boundary segregation on other grain boundary-related microstructural features has rarely been explored. To address this knowledge gap, this research project is leveraging advanced characterization techniques to quantify grain boundary segregation spectra in multicomponent aluminum alloys. Spatial variations in disordered grain boundary thickness, composition, size, distribution, and chemistry are being systematically studied and characterized. These efforts are establishing fundamental correlations between grain boundary segregation spectra, grain boundary structural transitions, and grain boundary precipitation behavior. This project is also carrying out a multi-faceted educational plan to advance research training and education on interface engineering for students ranging from high school through graduate school.